Integrated Synchrotron Infrared Facility for High-Pressure Spectroscopy and Microspectroscopy

0079510
Hemley

This award provides partial funding support for the development of a multi-user facility for high-pressure infrared spectroscopy applied to earth and planetary science research. The facility will consist of a dedicated synchrotron beam line source of high-brilliance radiation in the infrared to visible spectra region. The facility will be located at port U2A of the National Synchrotron Light Source at the Brookhaven National Laboratory. The facility will contain a Fourier Transform IR spectrometer along with recently developed long working distance microscopes for high-pressure applications. Laser and grating spectrometer systems will also permit a variety of complementary optical experiments including Raman spectroscopy. The facility will permit systematic spectroscopic measurements on samples held at ultra-high pressure and temperature conditions that apply to a broad range of research problems in earth and planetary sciences.
***